Collaborative Research: Topological Phases of Matter and their Application to Quantum Computing

In this collaborative project the Principal Investigators (PIs) will
investigate mathematical models for topological phases of matter and their
application to the nascent field of quantum information. Examples of
topological phases of matter include Fractional Quantum Hall liquids and
topological insulators: materials subjected to extreme physical conditions
(e.g. near zero Kelvin, under large magnetic forces) which appear to
exhibit topological behavior. The main objectives of the project are to
better understand the taxonomy of these exotic states of matter through
mathematical models, address physically and computationally motivated
mathematical problems, and apply topological and algebraic methods to
study them. For example, the issue of quantum computational power
(universality) may be analyzed by finding the images of the braid groups
under representations associated to a particular model. Moreover, the
extant hypothesized models for topological states of matter do not capture
all of the subtleties (such as fermionic topological order) so the PIs
will develop new models.

The classical states of matter of solid, liquid and gas have more refined
classifications: for example, solid crystals may be differentiated by
their symmetries. Newly discovered topological materials have yet to be
fully understood, but potentially can be used to build (quantum)
computational devices out-performing standard micro-chip based computers.
The most commonly encountered model for quantum computation, the quantum
circuit model, requires challenging, if not impossible, accuracy on the
hardware to be of practical value due to local interactions of the system
with the surrounding environment. The topological model based on exotic
states of matter, while mathematically more complicated, has a built-in
tolerance for such interactions. The PIs will mathematically study these
exotic states of matter focusing on their application to new computational
paradigms with potentially significant benefit to society.